Program Steering: From Interactive Programs to Distributed Laboratories

It is important for scientific investigators, engineers, and developers to be able to interact with their high performance applications running on parallel or distributed machines. This project will explore technologies to enable the flexible and interactive use of computational instruments, including on-line monitoring, analysis, steering, and experimentation. In addition it will permit users to exploit the new functionalities enabled by future integrated computing, networking, and user interface platforms, which include 'looking over a colleague's shoulder' from a remote location, sharing the outputs of computational instruments among multiple users or instruments, working concurrently on the same problem using high quality visualization techniques or immersive environments, or jointly operating a single shared computational tool, or even temporarily working on alternative or complementary tasks which are then reintegrated with ongoing experiments or processes.